Indicators of the Origins and Growth of Computer Science

This award will supplement SRS 86-07618. The award provides funding for two graduate research assistants for this fall and for additional site visits to 4-5 computer science departments.